Hall of Human Biology and Evolution

The American Museum of Natural History proposes to design and build a new permanent 9,000-square-foot Hall of Human Biology and Evolution over a three-year period. The exhibit is to start out with human biology and then move smoothly to human evolution and the fossil record and other evidences of early humans. The new exhibit will range from the molecular/genetic level to the emergence of human beings, and will include archeological excavations and findings, reconstruction and discussion of humanoids, early human evolution, human structure and function, and human diversity. In addition to stimulating the interests of visitors (2.7 million in 1986-87) in human biology and evolution through the use of traditional and interactive technology, the new exhibit program will provide curriculum supplement for elementary and high school classes and teacher-training guides and workshops to assist in the integration of the exhibition materials into classroom studies. The primary educational goal is to give the widest possible audience a concrete sense of where and how the human animal fits in the natural world through examination of the traits that we share with all creatures and those that are peculiar to humans. The exhibit promises further contribution by bridging the current exhibits on animal life and those on the rich ethnological collections on the diversity of human cultures. NSF dollars are to cover the costs only of planning, building and evaluating the exhibit, with no funds for staff.